Workshop on Physics Educational Software

This project gives 40 participants from the southwestern section of the country intensive exposure to personal productivity and teaching enhancement software applicable to undergraduate physics courses. The workshop is conducted by experts from New Mexico State University, which has a program to introduce more computer usage to its undergraduate curriculum. The participants are selected from two and four year colleges from the region with preference given to those from institutions serving significant numbers of Hispanic and Native American students. During the week the participants listen to experts discuss and demonstrate the capabilities of various computer programs. In the afternoons, the participants actually use the software to create applications for their own courses. A newsletter produced from the applications created by the participants insures that good ideas are given wide distribution. The objective of the workshop is to introduce a significant number of undergraduate faculty to the capabilities and operation of various computer programs which can enhance the teaching of their courses.